Publication of the Proceedings of the Tenth International Colloquium on Gasdynamics of Explosions and Reactive Systems

The papers of the Tenth International Colloquium on Gasdynamics of Explosions and Reactive Systems, to be held at the University of California, Berkeley, California, August 4-9, 1985, will be published. The subject matter of gasdynamics of explosions is concerned principally with the interrelationship between rate process of energy transfer in a compressible medium and itsconcurrent non-steady flow as it occurs typically in explosion phenomena. Gasdynamics of reactive systems is associated with processes of coupling between the flow system and chemical reactions or molecular transformations inheterogeneous media as they occur, typically in combustion systems. Besides contributions to the usual topics of explosions, detonations, shock phenomena, and reactive flow, other papers deal especially with gasdynamic aspects of non- steady flow in combustion systems and gasdynamic processes occurring in rock fragmentation. Some papers deal with effects of radiative energy transfer on fluid dynamic features of reactive systems as in the case of luminous flames, intense fires, and gasdynamic lasers.